Model Building and Phenomenology

Research in theoretical elementary particle physics will attempt to shed light on the origin of the masses of the quarks and the leptons (the electron, its neutrino, and related particles). Models of the masses of these particles which are consistent with observed particle - mass related phenomena such as the solar neutrino deficit will be studied. Models of neutrino masses are important as guidance for future experiments aimed at searching for evidence of these masses. In addition, the origin of the masses of the elementary particles is one of the outstanding puzzles of elementary particle physics, so that studies of masses are very important.